An Experimental and Numerical Investigation of Shellside Boiling in Horizontal Tube Bundles

This research project proposes to investigate the thermal hydraulics of shellside boiling in a horizontal tube heat exchanger in a recirculating liquid pool as well as in a once- through feed system. Experiments will be run in an existing flow loop using refrigerant R-113. A model of half of a slice of a square, inline and an equilateral triangular horizontal tube bundle will be designed and constructed such that with an insert the shell/bundle geometry can be changed from that of a kettle reboiler to that of a once-through submerged evaporator. The tubes in the bundle will be electrically heated and instrumented with thermocouples. Measurements will include the pressure distribution, void fraction and mean liquid velocity throughout the bundle, liquid velocities in the space between the shell and the bundle when operating as a kettle reboiler, test section power and wall temperatures. A two-dimensional, two-fluid numerical model of the thermal hydraulics will be developed to simulate the experimental setup. Once this model has been verified by comparing the experimental and predicted data from this experiment and by comparing computer simulations against industry data from full scale bundles, then innovative fluid-to-fluid heat exchangers will be studied. These latter speculative studies will investigate a variety of geometric and operating conditions. This research is intended to develop new data on shellside boiling and two-phase flow and to integrate the results from two previous projects to obtain overall tube bundle performance. It will pave the way for studying innovative designs unconstrained by past practice for heat exchangers with shellside boiling, and will demonstrate where future research activities should be directed.